Large Scale Structure Probes of Cosmic Acceleration

This program will address constraints on cosmological dark energy and alternative gravity models using probes of the growth of cosmic structures. Broader impacts of the work include training of a graduate student, and the use of cosmologically inspired sculptures as a basis for public outreach aimed at both science- and art-oriented audiences.

The research will combine galaxy-galaxy lensing with galaxy clustering to determine the evolution of dark matter clustering. Using a novel method developed by the PI, the proposal also aims at measuring the geometry and dark matter distribution at intermediate redshifts via observations of the Lyman-alpha forest. Finally, the PI proposes to test modified gravity by measuring the extended mass profile of galaxy clusters.